Coordination Compounds of Polyoxomolybdate Anions

This award from the Inorganic, Bioinorganic and Organometallic Chemistry Program will support a project in the general area of inorganic solution chemistry and in the specific area of the chemistry of polyoxometalate anions. Polyoxometallate anions are the largest inorganic compounds which can be brought into solution, and their solution chemistry is in a region intermediate between that of small molecules and that of solid metal oxides. This project is expected to help elucidate the processes which occur at the surfaces of metal oxides during catalysis, and in particular to elucidate the mechanism by which acrylonitrile is synthesized using bismuth molybdate as a catalyst, a process responsible for the production of four million tons of this chemical per year. The overall objective of the project is to exploit the synthetic methodologies developed recently for organohydrazido complexes of polyoxomolybdates in the synthesis of polyoxometalates with organoimido ligands. Emphasis will be placed on the synthesis of organoimido derivatives which are soluble in organic solvents, of polyoxomolybdate complexes stabilized by coligands, and of lacunary polyoxomolybdates. The complexes will be characterized by x-ray crystallography, by multinuclear NMR, and by electrochemistry. Thermal and photochemical decomposition of the organoimido derivatives, as well as their reactions with allylalcohol and alkenes, will be investigated.